Combinatorial Ergodic theory

Abstract: DMS-0244994: Byrna Kra

Penn State University

Kra proposes research in several areas of ergodic theory and
differentiable dynamics, with an emphasis on applications of ergodic
theory to number theory and combinatorics. The major area of research is
the study of ``non-conventional'' ergodic averages, studying ergodic
theorems for averages of functions where even if the system is ergodic,
the limit need not be constant. The investigator proposes studying
polynomial averages, averages for commuting transformations and averages
along other sequences of recurrence. Additional lines of research are
based on her work on circle maps, including connections between the
differentiability of the map, the arithmetic properties of its rotation
number and the dimension of its invariant limit set.

The project studies the long term behavior of systems whose dynamics is
too complicated or too chaotic to be understood locally. Dynamical
systems are used to model problems in natural and social sciences and
their study leads to an understanding of the evolution of the modeled
phenomena. The educational portion of the project aims to contribute to
the graduate and undergraduate programs at Penn State University, with
special courses designed to inject research into the learning process at
an early stage. In fall 2003, the PI will develop and teach a course on
topological dynamics and Ramsey Theory in the MASS (Mathematics Advanced
Studies Semesters) program, a long-standing program aimed at talented fourth-year undergraduates chosen in national competition. The outreach portion aims to make the
Mathematics Department at Penn State a more attractive place for women to
study and work, with the creation of a focus group on women's issues and
support of research projects for undergraduate women.